Educating about Statistical Issues in Large Scientific Data Sets

ABSTRACT

This exploratory project is identifying and describing the concepts and techniques in data analysis that are needed for secondary students to more effectively learn from and about large scientific data sets. This is to be done primarily with a search of the relevant literature. Also, it is developing a set of software and curricular design recommendations to address these needs. It is working with consultants knowledgeable in a number of large scientific data sets. The results are being disseminated in formats available to curriculum and software developers.